Bimonthly Speaker Series on "Scientific Visualization" Alongthe Front Range in Colorado

This award is for support to organize bimonthly meetings on scientific visualization along the Front Range. The meetings will be in form of talks and demonstrations by researchers in the scientific and engineering fields conducting research and/or developing tools on vital areas of interest. Facilities and special equipment will be provided by the University of Colorado.